SBIR Phase I: Ultra-Low-NOx Micromixed Burner

*** 9660044 Muzio This Small Business Innovative Research Phase I project involves the development of an enhanced micromixed natural gas combustion process. This novel combustion process provides the opportunity for a burner fuel/air mixing system to approach the performance of a premixed combustion system. This has two major implications in terms of benefits. First, it provides a means to approach very low NOX levels by not only controlling thermal NOX formation, but also minimizing prompt NOX formation. This is key to achieving ultra low NOX performance (i.e., less than 10 ppm). The proposed concept involves a novel approach to provide micromixing of fuel and air in order to achieve ultra low NOx emissions (i.e., less than 10 ppm). If successful this project should provide a cost effective alternative to NOX emission reduction. ***